Magnetic Resonance Studies of Highly-Correlated Metals

Properties of highly-correlated electrons in metals (heavy-fermion compounds and high-Tc superconducting oxides) will be investigated using nuclear magnetic resonance (NMR) and muon spin rotation techniques. In heavy-fermion compounds and alloys NMR and muon spin rotation studies will be carried out as microscopic probes of the interplay between superconductivity and magnetism in these unusual systems. Systems to be investigated include a uranium beryllium borides in which substantial alteration of superconducting-state properties is associated with a boron-induced change of the "Kondo" temperature Tc; and rare earth and actinide silicides, where possible weak magnetic phases in close proximity to the superconducting phase will be studied. Impurity-induced internal fields due to time-reversal-symmetry-breaking superconductivity will be searched for in several heavy-fermion superconductors. La-139 nuclear quadrupole resonance will be used to investigate charge and spin fluctuations in pure and doped lanthanum copper oxides. This work involves collaboration with groups at Los Alamos National Laboratory and the Paul Scherrer Institute (PSI) (Switzerland).